Women and Aggression in Aboriginal Australia: A Cross- Cultural Exploration (Anthropology)

The principle objectives of this research are to learn new computer skills, conduct analyses of 765 cases of men's and women's aggressive behavior in an Australian Aboriginal community, and to integrate the results of these quantitative analyses with material on the sociocultural context in which these cases occur in a book titled: "Fighting Sticks and Spears: Women and Aggression -- An Exploration." The publication will contribute to an understanding of how and why women everywhere or anywhere, act aggressively. Detailed illustrations will be presented of acts of female aggression and victimization and their sociocultural context. It will also integrate the Aboriginal data with those of other studies in order to address a number of current issues about female aggression including gender/sex differences in aggression, female competition, and women's roles in family violence. Finally, it will analyze the impact of Western theories and stereotyped on the study of female aggression and victimization and suggest appropriate modifications of current theory. Interactive activities will include teaching a graduate seminar on women and aggression as well as a team.taught undergraduate course on Australian Aboriginal Ethnography. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.